SGER: Comparison of Mist Chamber and Denuder Techniques for Determining Multiphase Concentrations of Atmospheric Amines

There is general concern for the integrity of field measurements of reactive atmospheric species that exist simultaneously in both the gas and aerosol phase. This work permits comparison of the amine nitrogen of concurrently acquired atmospheric gas and aerosol samples using the mist chamber and denuder techniques. The experimental design focusses on identifying potential gas/aerosol phase interactions which might compromise determination of discrete phase distribution for reduced nitrogen compounds. In a broader sense, the results of this study should enhance our understanding of processes involved in atmospheric multiphase sampling. Preliminary measurements point to the possibility that reduced organic nitrogen may be important basic components of the atmosphere in regions not directly influenced by anthropogenic sources.